Student Travel for NATO Advanced Study Institute

This award is to provide limited travel and subsistence for students from U. S. universities to attend a NATO-sponsored Advanced Study Institute on "Dynamic Modeling and Flow in the Earth and Planets". It will be held in Fairbanks, Alaska, June 17-28, 1991